An Object-Oriented Approach for Integrated Project Management Software

This proposal outlines a new approach to developing software for project management that is expected to offer a wide range of improvements to both the software development process and the characteristics of the resulting applications. The overall objectives are to construct systems that offer greater flexibility, higher intelligence, and significantly better integration. The proposed approach does not replace either traditional project management application or advanced application such as expert systems; rather, it offers a more efficient and uniform methodology for implementing these programs and a new integrated environment in which these application can reside. The basic approach of the proposed research which relies heavily on the concepts of object- oriented programming, is to create a set of standardized software objects that represent the fundamental elements of the project management process. For example, objects would be created to represent a building's physical components (e.g., beams and columns), the basic construction activities needed to produce these physical components, and the resources required to perform the activities. These basic "building block" objects could then be pieced together , according to general design and development guidelines, to form the core of various project management application programs.